Theoretical modeling of FEL's with micro-undulators generated by plasma waves

Free Electron Lasers (FEL's) are novel sources of coherent electromagnetic radiation whose emissions arise from the nonlinear coupling of a relativistic electron beam with a spatially periodic wiggler. In this research the investigator proposes to investigate and formulate the physics and design issues associated with the use of the CEBAF electron beam and a plasma wave wiggler to produce short wavelength FEL radiation. This unique electron source and advanced wiggler concept combine to form an innovative radiative source for solid state and medical research applications. In the planning grant period, an extensive review of the methods of analysis for each of the program objectives will be conducted. Additionally, an extension of the present theory of magnetic field error will be extended to plasma wave wigglers. These preliminary results will form the basis and details on which the proposed program objectives will be achieved.